Temporal Predictability in Daphnia pulex

Organisms live in environments that vary in complex ways in space and time. Although this statement is obvious, our understanding of how complex environments affect evolutionary processes is still rudimentary. This study will be one of the first to investigate the evolutionary response to environmental changes over time. The experimental organism is a small pond dwelling crustacean, the water flea Daphnia pulex.. The experiment will contrast evolutionary responses to three types of temporal variability: constant, variable and predictable, variable and unpredictable. The benefits of this study are two-fold. First, this study will greatly extend our fundamental understanding of the evolutionary processes. It will be one of the first forays into an area of evolution that has been long recognized as important, but until now has not been studied. The results have the potential for being a significant next step in the merging of the fields of evolutionary biology and developmental biology. Second, the results of this study will be useful in the development of crop strains. A crucial goal in agricultural genetics is the breeding of strains that will do well over a wide range of growing conditions. This goal is especially critical for farmers in underdeveloped or developing nations where control of growing conditions is poor. By understanding the constraints on how organisms can adapt to variable environments, we can better meet this goal.